A High-Performance Internet Connection for Idaho State University in Support of Meritorious Research

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection for Idaho State University. Applications include GIS TreC, remote operation of instrumentation, remote sensing imagery, protein characterization, 3-D modeling and others. Collaborating institutions include but are not limited to Washington State University, University of Idaho, Boise State University , University of Montana, Utah State University, MIT, Sandia National Laboratory, and DOE's Pacific Northwest National Laboratory.